Travel To Attend: Group Travel for U.S. Participants in International Symposium on Water for the Future; Rome, ItalyApril 6-11, 1987

This is a group travel award to support the participation of engineers and scientists presenting papers on hydrologic extreme events at the International Symposium on "Water for the Future", that will take place in Rome, Italy, on April 6-11, 1987. The Water Resources Center, University of Illinois, at Urbana-Champaign, is taking the responsibility to select the participants to be funded as they have done quite successfully, in the past, for other international conferences.